Minimal Dynamic Typing

9301610 Thatte Static and dynamic typing are often seen as opposing choices in the design of high-level programming languages. In recent years, there has been growing interest in overcoming this dichotomy. Much existing work in this area has been focused on static type analysis of dynamically typed languages where flexibility is emphasized over static type safety. The goal of this project is emphasized over static type safety. The goal of this project is to continue research on an approach suitable for extending statically type-safe languages with limited dynamic typing to support important features such as persistent objects. The project is investigating the use of techniques such as set constraint resolution, partial evaluation and abstract interpretation to design type systems that support maximal static detection of dynamic type errors with minimal dynamic tagging and checking. ***